Increasing Participation in Computer Science, Engineering and Mathematics through Scholarships

This project provides scholarships to talented low-income students to complete degrees in computer science, computer or electrical engineering, or mathematics. A learning community and seminar course help to support scholarship recipients in their academic and career prepartion. Specific goals are to link the scholars with each other and with other students, faculty and business leaders. The focus of the program is on low-income women and minority students, qualified transfer students from community and state colleges, and underemployed students whose education has been interrupoted by the need to work. The program seeks to achieve an 100% placement rate for graduates entering appropriate positions in the workplace or advanced education.